CAREER: A multi-scale and hierarchical computational framework to model III-nitride devices operating in the near-terahertz regime

Wide and ultrawide bandgap III-nitride semiconductors have the foundational capability to meet the power and frequency requirements of near-terahertz communication systems with bandwidths exceeding 100 gigahertz. III-nitrides are also well positioned to be used in extreme environments, from the cryogenic limit to high temperatures. However, the demonstrated performance of III-nitride devices today is still below theoretical expectations, and the promise of III-nitrides for near-terahertz applications remains unfulfilled. Still experimental advances in isolation of theoretical advances are unlikely to change this existing landscape. To tackle this challenge, in this research, we will create a multi-scale and hierarchical computational framework that will provide a high fidelity insight into the underlying physics of III-nitride devices at different length-, time-, and temperature-scales. These fundamental insights are crucial for identifying material- and device-level advances that will push the bounds of III-nitrides’ based wireless technologies, be it for commercial wireless communication or scientific investigations in extreme environments. This research will have a far reaching impact in areas like healthcare, energy, transportation, space programs, and social and educational advancements. The models developed here will be fully open-source and available to researchers world-wide, amplifying the scale and impact of this research. We will inaugurate an afterschool semiconductors-focused summer camp for middle school students and try to recruit low-income students in the department and in our research lab. Web-based learning library on semiconductor physics will be developed to encourage students to think creatively about the possibilities of semiconductors in next-generation electronic systems. The success of this research, outreach and educational plan holds promise to result in decades of productive fundamental knowledge, contribute to translation into important near-terahertz technologies, and motivate the participation and retention of a broad community of electrical engineers, materials scientists, and physicists.

Modeling and simulation tools are the cornerstones of the physics-based and application-driven device and circuit design. Because III-nitride devices are intended for use in high-field and high-frequency applications, current models that neglect Maxwell’s full-wave effects and full-band physics fail at guiding experiments for technology optimization and cannot fully explore the materials-to-circuit design space, which is highly desirable for meeting target performance metrics. Thus, it is safe to say that a fundamental rethinking of computational methodologies for III-nitride devices will be a game-changer for a myriad of near-terahertz applications that can address some of the biggest challenges of current and future times. In this research, we will create a multi-scale computational framework that combines first-principles calculations through numerical transport simulations to a compact circuit model. This framework will identify new theoretical means to interrogate and control the high-frequency and off-equilibrium physics of the near-terahertz III-nitride devices. Salient features of this computational framework include full electronic bandstructure, hot-electron effects, self-heating, quantum-mechanical scattering, charge trapping, low-temperature physics, and full-wave electromagnetics. Because the numerical framework will be complemented with a SPICE-compatible and experimentally validated compact model, the proposed research will enable large-scale circuit simulations and systems design. The outcomes of this research will benefit many stake holders, from material scientists to circuit designers, and enable cross-disciplinary interactions that will set the global stage for multi-generational research in wide and ultrawide bandgap semiconductors.